Acquisition of an Ultramicrotome

An ultramicrotome is requested to help investigate cellular polarity and subcompartmentation. One project uses a developmental approach to dissect the various mechanisms that polarize the distribution of membrane proteins in simple, transporting epithelia. Another project examines the ordered arrangement of 3 isoforms of dynein associated with the microtubules of flagella in Chlamydomonas. This arrangement is required for flagellar bending. Two projects examine the polarity of the neuron. The first addresses the polarized distribution of the 5 -tubulin isotypes presumably confers different functions to different classes of microtubules. The second project examines the polarized distribution of tyrosine kinases, isoforms of protein kinase C, and their substrates. Ultramicrotomy is central to all of these projects. Standard transmission electron microscopy is require to relate the structure of reconstituted axonemes, or axonemes isolated from mutants with defective flagella, with their behavior in functional assays. In the other projects, proteins of interest will be localized by immunocytochemistry at the light level (using immunocluorescence staining of 0.5-1.0 M frozen thin sections) or at the electron microscopic level ( using immunogold and immunoperoxidase methods).